Proton-Antiproton and Alpha-Alpha Interactions at the CERN Laboratory (U.S.-Turkey Cooperative Research; Science in Developing Countries)

Technical Narrative: This U.S.-Turkey collaborative research project involving physicists from the University of California at Los Angeles (UCLA) and Cukurova University in Adana, Turkey will launch a new full- scale analysis of data on alpha-alpha interactions. Project funding will enable Drs. Nazife Ozdes and Ayse Kuzucu of Cukurova University to work with Dr. Peter Schlein and his team from UCLA at the Super Proton Synchrotron at CERN (Switzerland). Additionally, after Drs. Ozdes and Kuzucu return to their university, members of Schlein's team will visit them in order to continue the full physics analysis. This new collaborative research effort will build on data compiled from a previous experiment conducted by Schlein's team at CERN. These data constitute the first evidence for diffractive production of multi-Lambda systems in ion collisions. Consequently, a more detailed understanding of alpha- alpha interactions will permit the team to extrapolate to larger ion beams. This project is important because ion beams can provide a production mechanism for bound multi-Lambda systems, thereby, avoiding the uncertainties of production via the conjectured quark- gluon plasma mechanism. This project in high energy physics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Turkey to combine complementary talents and pool research resources in areas of strong mutual interest and competence.